Presidential Young Investigator Award

Base Isolation of structures and systems is an attractive strategy to mitigate the effects of earthquakes. Implementation of the strategy, on a limited basis, has been achieved in several countries world- wide. Many issues, which require considerable research, remain unresolved and are barriers to further accelerated implementation. This research project address many of these issues in both conventional structures and for bridges. This includes soil- structure instruction effects, materials behavior under seismic conditions and actual performance of structures on a shaker table simulator. The research will provide design and analysis methodologies to aid in accelerated implementation of base isolation. This research grant provides the base support to Dr. Constantinou for a Presidential Young Investigator Award.